Experimental Studies of Superfluid Helium Three

9510496 Gould This project is a study of materials at ultralow temperatures and the development of ultralow temperature techniques. The experiments are carried out at temperature substantially below 1K. Several areas research are represented. One addresses the magnetic properties of superfluid 3He. The experiments are of interest because they will provide important test of extant theories, and address fundamental issues related to low temperature magnetic measurement methods. The second is the magnetism of thin films of 3He. The thin film magnetism differs in interesting ways from bulk magnetic properties of 3He. The third area is the transport properties of thin metal films and the development of instrumentation based on superconducting quantum interference devices (SQUIDS). This includes important research in a new area of mesoscopic physics. The various research projects are of a fundamental nature, but may have technical relevance in the context of advanced materials and devices operating at cryogenic temperatures. For example, ultrasensitive SQUID devices have been employed in clinical studies of the weak magnetic fields originating from brain wave activity. %%% This project is a study of materials at ultralow temperatures and the development of ultralow temperature techniques. The experiments are carried out at temperature substantially below 1K. Several areas research are represented. One addresses the magnetic properties of superfluid 3He. The experiments are of interest because they will provide important test of extant theories, and address fundamental issues related to low temperature magnetic measurement methods. The second is the magnetism of thin films of 3He. The thin film magnetism differs in interesting ways from bulk magnetic properties of 3He. The third area is the transport properties of thin metal films and the development of instrumentation based on superconducting quantum interference devices (SQUIDS). This includes important research in a new area of mesoscopic physics. The various research projects are of a fundamental nature, but may have technical relevance in the context of advanced materials and devices operating at cryogenic temperatures. For example, ultrasensitive SQUID devices have been employed in clinical studies of the weak magnetic fields originating from brain wave activity. ***